Proposal to Support and Undergraduate Research Site at the Santa Fe Institute

The Santa Fe Institute will continue its REU program. The site will select a limited number of highly motivated and talented undergraduates who can benefit from exposure to the rich interdisciplinary mix of ideas at the Institute. Women and minorities will especially be invited to apply. Senior faculty mentors will be selected for their interest in the program and each undergraduate will be matched with one or more mentors who have research problems of real interest to the student and to which the student can make a significant contribution. Other resident scientists will be encouraged to take a regular interest in the intellectual development of the interns. The students will be encouraged to participate fully in the intellectual life of the Institute by attending colloquia and seminars and through informal discussion of their work with other resident researchers. Where appropriate, publication of scientific papers, attendance at workshops, and release of student-developed software will be encouraged by SFI. During each student's residency he will make a SFI colloquium presentation, compile a written summary of his work, and frequently consult with the program director. Students are encouraged to remain in contact with the Institute and their mentors as their careers develop, and, if appropriate, to return for subsequent scholarly visits.